Curves and 3-Manifolds

We describe three problems in this proposal, all in the general
area of knot theory and 3-manifolds. A Heegaard splitting of a
3-manifold is a decomposition of the 3-manifold into simple pieces,
called handlebodies. This decomposition is an effective way to
study many of the interesting open questions about 3-manifolds, but
there are some startling gaps in our basic information about Heegaard
splittings. We know that given two Heegaard splittings of the same
3-manifold, one can move from one to the other by a series of moves.
The first problem in this proposal asks how "far apart" two different
Heegaard splittings of a 3-manifold can be under these moves. The
second problem is to explore a particular aspect of the Poincare
Conjecture prompted by Dunwoody's recent attempt and suggested by
earlier work of Freedman and Yau. We will look carefully at whether
a plan analogous to what Dunwoody proposed can be made to work on a
real 3-ball, beginning with an even simpler version of the question
on a triangulated 2-sphere. The final problem is a generalization
of recent work of the proposer on immersed curves in the plane to
immersed 2-spheres in 3-space. We will look at the set of
singularities (including, for example, curves of self-intersection
and points of zero curvature) and try to derive relationship between
numbers and types of singularities, similar to the kinds of results
known for immersed curves in the plane or in projective 2-space. We
also describe how these and other related problems have been used by
the proposer to stimulate interest in the field and in mathematics in
general at levels ranging from high school students, including
undergraduates and graduate students, through postdocs.

Low-dimensional topology is the study of properties of spaces in
dimensions two, three, and four. It is a field that used to lie
squarely in the realm of "pure" mathematics, and research in the
field was pursued largely for its intricacy and beauty. As we
continue to understand the universe, from the shape of space itself
to the knotting of strands of DNA, the deep connections between this
abstract area and the real world are increasingly apparent. This
proposal aims to explore some of the fundamental questions in
3-dimensional spaces and knot theory, including understanding the
relationships between different decompositions of 3-dimensional
spaces and quantifying the complexity of 2-dimensional spheres
immersed in a standard 3-dimensional universe.